Collaborative Research: Turbulence-spurred settlement: Deciphering a newly recognized class of larval response

Overview: With this award the investigators will explore a habitat-scale oceanographic process that has the potential to integrate studies of larval delivery with an understanding of how larvae respond to substrate-associated cues. This work will build on published and preliminary data indicating that turbulent shear characteristic of high-energy near shore environments primes larvae to initiate settlement and to transform into the juvenile stage. These prior findings suggest that: 1) Because turbulence intensity varies predictably as a function of the strength of wave breaking and other factors, turbulence could operate as an indicator for larvae of their approach to suitable habitat, providing a link between larger-scale dispersal phenomena, and near-bottom search and selection behaviors; and. 2) The larval response to turbulence acts in an unprecedented fashion. In contrast to typical cues, turbulence does not induce settlement directly, but rather spurs otherwise "pre-competent" larvae that are refractory to chemical cues to become "competent", thereby causing them to acquire responsiveness to such cues and undergo settlement. The interdisciplinary team has combined expertise in larval biology, sensory ecology, and organism-flow interactions necessary to address this topic. They will employ a phylogenetically robust approach to explore the scope and adaptive significance of the turbulence response in a widespread and ecologically important class of organisms (echinoids; sea urchins and their relatives), and will determine whether the response is aligned with environmental conditions characteristic of these organisms' adult habitat. They will also test for ecologically important functional consequences of precocious, turbulence-induced settlement. This work will provide a detailed look at an entirely new class of settlement inducer, one with strong potential for changing current conceptualizations of dispersing larval stages, their ability to detect signatures of habitat across multiple scales, and the ways in which organism-level traits might influence population connectivity.

Intellectual Merit : How organisms with dispersing life stages find their way back to adult habitat is a fundamental question in marine ecology. Considerable research has explored links between transport, delivery, settlement, and recruitment, with important advances in knowledge. However, a complete understanding of the larval recruitment process remains elusive. Standard tools for estimating dispersal (e.g., numerical circulation models) have limited spatial resolution, which prevents them from predicting at scales below a few hundred meters how larvae will interact with the shore. Studies investigating larval attachment have focused on chemical, tactile, or near-bottom hydrodynamic cues active across microns to centimeters. The novelty of the present project is that it will focus on processes at habitat scales -- between transport and settlement -- where there is a gap in the understanding of processes.

Broader Impacts: This project will provide a framework for integrating key concepts of propagule dispersal and settlement, two fundamental but largely disjunct themes in marine science. The understanding that will come from this study will provide key information for ecosystem based management of coastal marine resources. The findings of the study will be communicated via publications and conference presentations. There will also be a robust education and public outreach effort. The investigators will develop a "Surfing to Settlement" virtual lab activity based on their research that will be incorporated into the VirtualUrchin web platform, a widely exploited educational resource at Stanford that gets thousands of unique users per month. Through connections to the San Francisco Bay National Estuarine Research Reserve, they will integrate the "Surfing to Settlement" activity into one of NERRs professional development workshops for central California educators, thus disseminating this resource to and gaining valuable feedback from dozens of teachers and thousands of students. The project will also continue an existing partnership with a local community college (Santa Rosa Community College) that provides a means for undergraduates who would otherwise get little exposure to the research enterprise to receive training and mentorship in the scientific process via extended internships. In addition, the investigators will expand development of a high-quality video/photo resource that documents early development, larval morphology and behavior in a phylogenetically broad array of animal phyla, and will disseminate this resource to the public via an existing collaboration with the internationally known Monterey Bay Aquarium.